TQFT, Links and Real Algebraic Curves

DMS-0203486
Patrick Gilmer

This project investigates applications of integrality results for
morphisms under Topological Quantum Field Theories (TQFTs) for
low-dimensional topology. Strong Shift Equivalence (SSE) is an
equivalence relation which arose in symbolic dynamics. Gilmer is
investigating a connection between TQFT and SSE which he has recently
discovered. Using a TQFT one defines various SSE class invariants of
knots and other spaces which are equipped with an infinite cyclic cover.
This can now be derived as a consequence of a SSE class invariant.
Gilmer is attempting to use TQFT to find obstructions to classical knots
being slice knots. In general, Gilmer is using TQFT as a tool in
low-dimensional topology. In joint work with Stepan Orevkov, Gilmer is
calculating further signatures and nullities of certain links which he
associated to collections of curves in the real projective plane. In
previous work, Gilmer found restrictions on these invariants if the
collection of curves is isotopic to a real algebraic curve of given
degree. These calculations may lead to new general restrictions on the
topology of real algebraic curves. Gilmer is also exploring relations
between real algebraic curves and shadow descriptions of links, in the
sense of Turaev.

Topology is the study of intrinsic shape. It is sometimes called "rubber
sheet geometry" because the objects under investigation can be twisted and
stretched (but not torn) without losing their identity. It is a subject
which impinges on many areas of mathematics and science. Topological
Quantum Field Theory is one of the most current and exciting areas of
topology with intimate connections to high energy physics as well as other
areas of mathematics, for instance number theory and symbolic dynamical
systems. Gilmer is applying this subject to answer questions about knots,
links and 3-dimensional manifolds. A 3-dimensional manifold is a
topological object which looks locally like the familiar space we live in.
One may also consider manifolds of other dimensions. It is ironic that
manifolds of dimension three and four are least well understood. One would
guess that our intuition should be strongest in these dimensions. A knot
is a closed loop in a 3-manifold. A link is a collection of closed loops
in a 3-manifold. In 1900, Hilbert gave a famous list of problems for
mathematicians to study. His sixteenth problem concerns the topology of
real algebraic curves in the real projective plane, It is still unsolved
but it has lead to many beautiful developments and partial solutions.
Hilbert asked how the components (called ovals) of the set of zeros of a
nonsingular real homogenous polynomial of given degree can be arranged in
the plane, if the number of these ovals is maximal for the given degree.
This project further studies certain type of links to make progress on
Hilbert's problem and related questions.